Board on Atmospheric Support and Climate Core Support

This award will enable the National Academy of Sciences/National Research Council (NAS/NRC) to continue activities of its Board on Atmospheric Sciences and Climate (BASC) in FY 1992-93. Specifically BASC will: 1. Provide scientific advice and guidance to the federal government on national and international issues in the atmospheric sciences and climate, and on coordination between discipline oriented activities within the atmospheric sciences and interdisciplinary programs. 2. Continue the Climate Research Committee (CRC) to guide and advise federal agencies on U.S. participation in the World Climate Research Program (WCRP) 3. Maintain overview of science issues and implications of atmospheric chemistry in the earth and environmental sciences through the Committee on Atmospheric Chemistry (CAC). 4. Continue activities of the Committee on Meteorological Analysis, Prediction, and Research (CMAPR) in providing scientific oversight and assessment of basic and applies research in meteorology, weather prediction, atmospheric and cloud physics, weather modification turbulence and diffusion. 5. Continue activities of the Committee on Solar-Terrestrial Research (CSTR), including participation in the international Special Committee on Solar-Terrestrial Physics (SCOSTEP). 6. Maintain capability to respond rapidly and effectively to requests by federal agencies and congress for evaluations, guidance, recommendations, and support in research and applications in the atmospheric and climate sciences. 7. Serve as a focal point for (a) coordination and provision of scientific expertise for other National Research Council units whose activities include topics on atmospheric sciences and climate, and (b) liaison with relevant international sciences activities.